American Meteorological Society/National Science Foundation (AMS/NSF) Graduate Fellowships

The American Meteorological Society (AMS) proposes that the National Science Foundation, Division of Atmospheric Sciences renew their support of a well-established and respected graduate fellowship program available to all first-year graduate students in the area of atmospheric, oceanic, and hydrologic sciences.